Project iLASER - Celebrating the International Year of Chemistry 2011

Project iLASER (investigations with Light And Sustainable Energy Resources) will engage children, youth and adults in the Southwest United States in public science education and hands-on activities. The Project iLASER team will visit communities in Chula Vista, CA; El Centro/Brawley, CA; Yuma, AZ; Nogales, AZ; Las Cruces, NM; El Paso, TX; McAllen, TX; and Harlingen, TX. Each two-day or three-day visit will include activities in light and solar energy. Numerous local partners, including Boys and Girls Clubs, YMCAs, science museums, two year colleges, chemistry clubs and individuals will assist. Two particularly critical partners are the Nanoscale Informal Science Education Network (NISE Net) and CCI Solar, a basic research center centered at Caltech. Public lectures on the science and impacts of CCI Solar research will be offered in each community.

Project iLASER is supported by the Division of Chemistry and the Division of Research on Learning, Lifelong Learning Cluster, as part of the celebration of the International Year of Chemistry.